Velocity Measuring Equipment for the Undergraduate Thermo- Fluids Laboratory.

A laser doppler velocimeter will be installed in the thermo-fluids laboratory. This will enable the students to make non-invasive measurements of fluid flow in generalized test sections. Students from the fields of mechanical, electrical, civil and chemical engineering will be able to perform open ended experiments of varying degrees of complexity. Typical experiments planned are measurement of boundary layer velocity profiles in drag reduction, measurement of fluid velocities in radial and sonic flow, and measurement of velocities in a pump turbine test stand.